Columbia College Site Wide Area Networking, Phase II

Columbia College requested support from NSF to connect three remote campus sites to the Internet. These campus sites are located in Lake County, IL, Kansas City, MO and Aurora, CO. The sites will be connected through the Missouri Research and Education Network (MOREnet). Combined, these campuses have an enrollment of over 1000 students. The campuses needs the Internet connection to be able to access information resources throughout the faculty, staff students of these institutions as well as the community in general. The award provides partial support of the project for two years.